Mathematical Sciences: Complexity and Information Based Criteria for Model Selection

This research will deal with the properties of information as used in model selection. New information criteria have been developed which deal with situations of multiple data sets and/or with models which may have the same dimension. This research will expand on recent results for these criteria, and in particular will establish asymptotic properties. This research will deal with statistical model selection. The area, generally speaking, is concerned with the choice of the best model to fit a dat set among a set of candidate models. Issues of interest include problems of overfitting and the selection of variables in regression.